NSF Young Investigator Award

The research will center on three related areas: 1) The socio-cultural contexts and policy implications of drug production and consumption, with a special emphasis on Bolivia and Hispanics in the United States; 2) Cross-cultural demographic and historical anthropology; and 3) Computer-based qualitative data analysis.